Workshop on Intelligent, Dynamic Scheduling for Manufacturing, Cocoa Beach, Florida, January 25-27, 1993

Intelligent, dynamic scheduling in manufacturing systems encompasses a unique set of problems which span Computer Science, Engineering, and Cognitive Science fields of expertise. Many issues come to play in the manufacturing scheduling arena, including: 1. external (suppliers, production orders, market conditions, etc.) and internal factors (machine layout, setup times, maintenance, etc.), 2. interactions within the plant because of, e.g., resource sharing among lines or cells, 3. unexpected conditions or events (breakdowns, stockouts, strikes, etc.), 4. inventory policies (e.g., MRP versus JIT), 5. type of layout (e.g. flow lines, cells, job shop), 6. volume. These and other issues render the scheduling problem a complicated one, requiring a knowledge-rich solution procedure based on a model of the plant synthesis-type reasoning tasks. This workshop brings together researchers with the unique blend of skill necessary to develop models and schedulers in manufacturing. The goals of the workshop are to: 1. clarify what progress has been made in this area, 2. identify the various levels and types of schedules required in manufacturing and how they interact, 3. identify the factors most critical to schedule formation/revision, 4. address plant-specific research versus more general research via a discussion of classification or morphology of plant types and/or features, 5. compare manufacturing scheduling to other types of scheduling tasks; what makes manufacturing scheduling unique?, 6. discuss empirical versus theoretical research in the field, 7. set major research goals for future work.//